Upgrading the Quality and Efficiency of Geotechnical Centrifuge and Shaker Operations

9601709 Kutter This project is for specialized equipment and upgrading of the existing centrifuge. The capability of the centrifuge will be enhanced by the addition of a multipurpose activation to impose seismic effects. ***